SBIR Phase II: Advancing an Ecosystem Forecasting Platform to Restore Nature at Planetary Scale

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase II project is centered on addressing a critical environmental challenge: global reforestation and carbon sequestration. This endeavor is vital in the fight against climate change, aiming to revitalize ecosystems, enhance biodiversity, and contribute to carbon dioxide reduction. The project aligns with the National Science Foundation's mission by integrating innovative technology with environmental stewardship, offering significant societal benefits. It seeks to develop a tool that can guide effective reforestation efforts, thereby impacting the lives of U.S. citizens and others globally. This tool’s commercial potential lies in its ability to inform governments and organizations in planning and executing reforestation projects, generating income through the provision of essential ecological data services. Additionally, the project's success could create new job opportunities in environmental science and technology sectors. The anticipated outcome of this project is not only a technological advancement but also a positive contribution to environmental sustainability, resonating with the global movement towards greener practices.

The strong technical innovation of this project lies in developing a sophisticated forecasting model for global reforestation and carbon sequestration, a task presenting significant challenges due to the complex nature of ecological systems. This model represents a high-risk endeavor, employing advanced computational techniques and machine learning algorithms integrated with comprehensive environmental data, setting it apart from existing methods. The primary goal of this research is to create a tool capable of accurately predicting reforestation outcomes and carbon sequestration potential across various global landscapes. The approach combines satellite imagery analysis, environmental variable data, and advanced algorithms to model ecological restoration scenarios. The scope of the research includes refining data integration methods, enhancing model accuracy, and ensuring scalability for global application. These efforts aim to provide a valuable resource for guiding effective reforestation initiatives, aiding in climate change mitigation, and contributing to the preservation of global biodiversity. The successful development of this model would not only mark a significant advancement in ecological forecasting but also provide a crucial tool in global environmental conservation efforts.